The Worcester Foundation Summer Training Program

This award provides funds to the Worcester Foundation for Experimental Biology to continue a successful Research Experiences for Undergraduates Site. The program consists of an intensive "hands-on" laboratory research experience individualized for each student and performed under the guidance of working scientists expert in many of the traditional and modern areas of biological sciences. The program is designed to provide students with their first exposure to the actual practice of scientific research in the hopes that the excitement, challenge and creativity of the enterprise will convince them to consider basic research in the sciences as a viable career choice. In the spring, each student is matched with a basic research project initially proposed by a preceptor with an active research program in the students stated area of interest. Upon acceptance, each student is provided with a reading list of current publications in the selected area to provide the background required for the proposed summer research project. During the program students are 1) acquainted with current issues in biological research; 2) provided with the opportunity to learn and practice valuable scientific techniques and skills, many of which can be utilized in future endeavors; 3) guided in shaping the specific research questions to be asked in each project; 4) required to work independently toward these research goals; 5) encouraged in cross disciplinary approaches to their projects by providing opportunities for interaction with other students and the whole of the research staff at the Foundation; and 6) provided an educational setting which is maximally challenging and thus, fosters exploration of future career choices in science. In addition to the required written report detailing the progress made in their individual research projects, each student presents a short oral report to the faculty and public summarizing of the results of their efforts at a closing minisymposium and award ceremony.